Acquisition of Instrumentation and Computational Equipment Laboratory on VLSI High Performance Signal Processing and Communications

9413992 Sanchez-Sinencio This award supports the acquisition of computational and instrumentation equipment to support research in VLSI implementation of High Performance Communications and Signal Processing systems. The research supported by this instrumentation includes Receiver and Coding algorithms for Fading Channels, Wavelets for Efficient Signaling, Speech Data Compression for Mobile Communication Systems, and Signal Processing in Physical Systems. ***